Heterogeneous Chemical Reactions in the Upper Troposphere and Lower Stratosphere

Through laboratory studies these researchers will conduct a systematic search for new important heterogeneous reactions in the upper troposphere and lower stratosphere; that is, heterogeneous reactions other than those recognized to occur in the Antarctic spring. They will measure the surface coverages and compositions of selected trace species on the surfaces of water ice (ICE), nitric acid trihydrate (NAT), and supercooled sulfuric acid/water (SA/W) solutions. These surfaces will be exposed to trace atmospheric species one at a time, two at a time and in some cases three at a time in order to investigate reaction-enhanced surface adsorption as well as single-species surface coverages. The plan is to study these surface compositions under experimental conditions similar to those present in the upper troposphere and lower stratosphere. These experiments will employ the surface science techniques of X-ray photoelectron spectroscopy (XPS) for the determination of the elemental composition of the surface and the oxidation states, (and therefore the bonding) of the surface chemical species, Auger electron spectroscopy (AES) for the determination of the elemental composition of the surface, and quadrapole mass spectroscopy (QMS) for identification and monitoring of the gas phase chemical species. In conjunction with these experiments, through use of chemical thermodynamics combined with the composition and temperature data provided by the Livermore two-dimensional atmospheric model, these researchers will determine the locations and times that various chemical reactions are the thermodynamically capable of undergoing heterogeneous catalysis at noon and midnight, during June and September, at altitudes of 5 to 35 km, and from pole to pole. By combining these two novel lines of study they seek to identify candidates for new heterogeneous atmospheric reactions and suitable catalysts for such reactions. Reactants of interest include atmospheric trace species such as sulfur dioxide (S02), hydrogen peroxide (H202), Chlorine (Cly) molecules, and NOy molecules. One specific research task will emphasize the +3 oxidation state of nitrogen N(III), which is significant in urban smog, but is apparently not important in stratospheric models and measurements. N(III) species may be a significant reservoir for active NOx, a sink for stratospheric NOy, a catalyst for activating HC1, and a source of atmospheric OH radical. Through such laboratory studies, they hope to locate where in the atmosphere N(III) chemistry is important and investigate previously unidentified heterogeneous reactions that occur under the conditions present in the upper troposphere and lower stratosphere.